Decomposable Forms and Siegel's Lemma

The investigator continues to study general decomposable forms.
In particular, he seeks
better bounds
for the number of primitive integral solutions to non-degenerate decomposable
form equations and also stronger asymptotic
results for the number of integral solutions
to the related inequality.
In addition, the investigator studies the
absolute Siegel's lemma and the related
Hermite's
constant over the algebraic numbers. The main goal here is an effective
version of the former and improved upper bounds for the latter.

The decomposable form equations dealt with here are examples of
Diophantine equations. These have been studied for millennia.
Long thought to be mere intellectual curiosities, it is
now realized that knowledge in this area is crucial in our
``digital" age. Much of cryptography, coding, and data exchange rests
on the ability, or lack thereof, to find solutions to such equations.
Siegel's lemma and Hermite's constant are intimately connected with
sphere packings, finite groups
and
error-correcting codes, and via these to many disparate areas of
science.